Presidential Young Investigators Award: Simulation of Complex Reacting Flows

A computer code is to be constructed to simulate three- dimensional unsteady turbulent reactive flows, based upon a spectral element algorithm which combines the accuracy of pseudospectral methods with the versatility of finite-element techniques. The large eddy simulation technique will be used, in which the subgrid turbulent motion is modeled approximately while the large scale structures are calculated directly. A single-point probability density function method will be developed for the scalar subgrid closure, and a two-equation subgrid model will be employed for the hydrodynamic closure. In a second program, the effects of compressibility on hyper- velocity three-dimensional reacting turbulent flows will be investigated using a hybrid finite difference/element pseudospectral algorithm. Several recently developed shock capturing schemes will be implemented for high Mach number flow simulations. The thorough understanding of turbulent reactive flows is essential to operate modern engines and power systems within the constraints of high efficiency and low emissions, and the next generation of supersonic aircraft poses questions which may not be answerable through traditional experimentation and development techniques. This research program will provide new tools for engineers to extract answers to many of those questions.